Inductively Coupled Plasma Mass Spectrometer

Funds are requested to purchase an ICP-MS to be housed in the School of Oceanography at the University of Washington. Access to an instrument of this type does not presently exist in the Seattle area, and there are at least ten active NSF research grants at the University of Washington which would make use of the high sensitivity and rapid sample analysis capabilities of the instrument. Presently identified users are in the School of Oceanography, the Department of Geological Sciences, and the NOAA- Pacific Marine Environmental Laboratories.